Solids Modeling and Analysis in Engineering Technology.

The current CAD laboratory is upgraded to include a network of computer workstations which support solids modeling and analysis software. Students in the mechanical engineering technology and manufacturing and design technology programs study the concepts and techniques of interactive solids modeling. Utilizing the solids software students complete assignments that include solid renderings and the support calculations of the mechanical properties of their designs. Also, software related to finite element analysis, manufacturing systems, machining centers, and HVAC design is used to support the design and analysis components of the curriculum.